A Workshop on the Use of Logic Synthesis in the Classroom

Logic Synthesis and top-down design are increasingly being used for digital system design in industry. Introducing logic synthesis techniques into a computer science or engineering curriculum can be a daunting task for the educator because of the wide number of choices of languages and toolsets. Two workshops on Logic Synthesis in the Classroom will be held; one workshop will be aimed at educators on a budget and will consist of all public domain tools which participants can immediately begin using in the classroom. A second workshop will feature a combination of the Viewlogic commercial tool suite and public domain tools. Both of these toolsets have been used in the MSU Advanced Digital Design course with great success.